Arithmetic on K3 surfaces and related problems

Abstract for award DMS-0403686 of Baragar

A fundamental tenet of arithmetic geometry is the notion that one can infer
arithmetic properties of a variety from its geometry. The investigator's
research primarily deals with such a notion. Specifically, the PI hopes to
show that the number of rational points with bounded Weil height in an orbit
under the action of the group of automorphisms of a K3 surface grows
asymptotically like a power of the bound. The exponent of growth should
depend only on the geometry of the surface. When the K3 surface contains
no -2 curves, the exponent is expected to be n-2, where n is the dimension
of the Picard group. The situation is particularly interesting when there
are -2 curves. In this case, the exponent of growth should be related to the
Kahler cone or nef cone. The Kahler cone lies in a Lorentz space of
dimension n (where the intersection product is the Lorentz product) and a
cross section of the cone lies in a hyperbolic space of dimension n-1. When
the K3 surface has a -2 curve, the boundary at infinity of this cross
section is a fractal on a sphere of dimension n-2. The PI believes that the
previously mentioned exponent of growth should be the Hausdorff dimension of
this cross section. When n=4, these fractals are similar to the well known
Apollonian gasket.

This is basic research aimed at improving our understanding of K3 surfaces
and related objects. Surfaces of type K3 can be thought of as higher
dimensional analogs of elliptic curves, for which analogous research was the
subject of early 20th century mathematics. Our basic understanding of
elliptic curves eventually led to the development of elliptic curve based public key codes, fast
factoring algorithms, and efficient error correcting codes. The theory and
existence of public key codes revolutionized cryptography and with it, the
internet as we know it. Without them, internet based commerce would be far
too vulnerable to allow the sorts of transactions we currently take for granted. A K3 surface can
also be thought of as a two dimensional Calabi-Yau manifold. Three
dimensional Calabi-Yau manifolds are of interest to physicists studying
string theory and quantum field theory.